Controlled Preparation of a Dielectric Coating on a Surface

It is proposed to explore the possibility that the research on oligomers and polymers of ı1.1.1! propellane that we have been engaged in for the past four years opened an interesting opportunity in the area of surface science: generation of an imaged organic thin film of a tough and extremely insoluble transparent polymeric coating of controlled thickness and very low dielectric constant on a flat or a profiled surface of any water-insoluble substrate, with a hydrophobic or a hydrophilic, smooth or rough outer surface as desired. Such a coating would be of potential industrial interest, e.g., in the electronics industry.